Dynamic Recursive Representation Selection for Inductive Learning

The automation of classification learning is an ongoing concern in the machine learning, pattern recognition and statistics communities. People are very good at designing and collecting data, but less good at analyzing it and extracting useful generalizations. It is necessary to improve the techniques for automatic data analysis. The state of the art in inductive learning is that there exist several dozen inductive learning algorithms/concept representations, each of which is best on some proper subset of the possible inductive learning tasks. The project will develop an efficient method for selecting the best algorithm/concept representation for each recursive call of a divide-and-conquer tree induction algorithm. The combination of different representations into a hybrid significantly improves the ability of the inductive learning program to find a highly accurate generalization of the data. The major objective of this research will be an approach to learning that includes an efficient search for an appropriate hybrid representation, guided by detection of specific forms of hypothesis pathology. The creation of systems that search multiple representation spaces greatly increases the autonomy of learning machine, which will make data analysis techniques accessible to a wider range of scientists.//